"Technical Session - Bridges in St. Louis, Missouri, April 10-11, l990"

This award will support the national meeting of the Structural Stability Research Council with special emphasis on bridge engineering. The technical sessions will address questions of design, analysis and construction of steel bridges and related components and assemblies.